Special Minority Award (Physics): Arnoldo Laracuente

This Special Minority Award provides a year of support for Arnoldo R. Laracuente, a graduate student at the University of Colorado. The award will allow Mr. Laracuente to finish his course work expeditiously and reach the research participation phase sooner. This award is an integral part of the strategy of the National Science Foundation to strengthen and increase minority participation in the field of physics.